ITR: Institute for Quantum Information

EIA -0086038
Kimble, H.J.
California Institute of Technology

Title: Information Technology Research: Institute for Quantum Information

An interdisciplinary team of researchers in Physics, Applied Physics, Electrical Engineering and Computer Science are establishing an Institute for Quantum Information (IQI) to facilitate the investigation of quantum information science to provide new capabilities in the revolutionary field of quantum computing. To this end, efforts are being made to develop new algorithms for the manipulation, processing, and distribution of quantum information (including information capacities of communication channels, reliable schemes for distributed computation, efficient quantum error correcting codes). Investigations of physical systems for the implementation of quantum computation and communication, as well as coherent nanotechnology, principally by the way of theoretical models and analysis, are being performed. The team is also pursuing techniques to develop active control of quantum effects in nanoscale integrated circuits involving systematic approaches to the suppression of unwanted quantum effects via on-chip feedback networks and methods for stabilizing and exploiting emergent quantum behaviors in the context of analog/hybrid VLSI.